CISE Research Instrumentation: Instrumentation for Research in Spoken Language Systems

9320297 Cole The Center for Spoken Language Understanding at the Oregon Graduate Institute of Science and Technology will purchase a file server and disks to support research in computer and information science and engineering. The equipment will be used for several research projects, including: language identification, collection of census via telephone, voice server for spoken interaction with computers, and research on robustness in speech recognition. The collection and transcription of telephone speech in many different languages enables basic research in automatic language identification and the development of multi-language spoken language systems. The current file server at the Center has reached it's disk limit. The projects listed require significant amounts of new data. Some have budgeted disks which will not fit in the current server. Others require storage not yet available. The new server and disks will have a much greater capacity and throughput than the old, and will allow the Center to continue collecting data and developing algorithms for these projects and for the whole speech research community. *** M{E { .. M{E z MSSP_AM LEX ` n CUSTOM DIC SD e," MSSPELL DLL ` , Õ$SSPELLDLL" ta %3 9320297 Cole The Center for Spoken Language Understanding at the Oregon Graduate Institute of Science and Technology will p S U % ' $ $ $ G Times Symbol " Helvetica Chicago Times New Roman & Arial 5 Courier New R ZapfDingbats Palatino Greek GenMath MathMeteor MT Extra " & e& e 1 Cole/OGI Mark Purvis Mark Purvis